Petascale Computations for Complex Turbulent Flows

This award provides travel funds to support technical coordination between the Blue Waters project team and a team of turbulence researchers to explore the readiness of a turbulence simulation code for use on the Blue Waters system. If successful it is anticipated that the code will be used for advanced research into the dynamics of reactive turbulent shear flows and of stratified geophysical turbulence. A greater understanding of such dynamics may lead to improved capacity to predict and control pollutant dispersal by turbulence, better tools for the design of vehicles (e.g. aircraft, trains, ships) to reduce drag, for the design of combustion systems to increase efficiency and reduce pollutants, and to improved models for mixing and transport phenomena in geophysical flow modeling.